Web Handling Research Center

The term "web" is used to describe materials that are manufactured and processed in continuous flexible, strip form, i.e., from extremely thin plastics to paper, textiles, metals, and composites. Web processing effects almost every industry in some way. As web materials, processes, and products become more sophisticated, their problems become greater and more costly. Industry is recognizing that a cost effective approach to research that addresses these problems is through an Industry/University Cooperative Research Center in Web Handling. An Industry/University Cooperative Research Center in Web Handling is initiated at Oklahoma State University. Research areas to be addressed are as follows: lateral dynamics of moving webs, longitudinal dynamics of moving webs, winding and unwinding of webs, wrinkling in moving webs, on-line control of lateral and longitudinal dynamics, and on-line measurement of web physical properties.